Energy Frontier Physics with the CMS Experiment

Using data collected from proton-proton collisions at the highest achievable energies at the CERN Large Hadron Collider the properties of the fundamental building blocks in nature are studied. The data will be used to study the properties of the Higgs Boson and search for signs of new physics, using artificial intelligence techniques to extract the most from the data. The Large Hadron Collider will be upgraded to produce more intense proton-proton collisions. The detectors at the Large Hadron Collider will be upgraded to handle the higher data rates. The Experimental Particle Physics group at Cornell is leading the detector construction for these upgrades. These projects involve both graduate and undergraduate students, training them in advanced techniques for data analysis and detector development.

The data collected by the Compact Muon Solenoid (CMS) experiment will be analyzed to study the properties of the Higgs Boson. In particular studies of the H->Zgamma decay and di-Higgs production in the bbgg channel and searches for physics beyond the SM with long lived particles with displaced vertices are pursued. The Cornell group is leading the NSF upgrades of the CMS detector. Specifically, the group is involved with the forward pixel detector and the track trigger. The forward pixel detector will extend the tracking coverage in the forward region and the track trigger will provide tracking information from all proton-proton collisions at 40 MHz.